Creation, Analysis, and Applications of Very Long Fiber Bragg Gratings

The proposal research is to investigate fundamental issues regarding long fiber Bragg gratings in two important areas: first, the stabilization of the fabrication process by a new approach for real-time adaptive grating writing, and second, the methodology of synthesis of long gratings based on inverse scattering method for optimum design. Both of these are important issues that are holding back progress in the field. The fiber Bragg gratings have a broad impact on optical communications, particularly on dispersion management, and optical pulse shaping.